Purchase of GC/MS Instrumentation for Identification of Organics from High Temperature Water Reactions

*** 9709224 KOPPER This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will assist the junior faculty in the Department of Chemistry at Hendrix College acquire a gas chromatography-mass spectrometry-data system. This equipment will enhance research which is focused on the development of transition metal-assisted organic transformations in high-temperature and high-pressure water (pressurized aqueous reactions above 100 C). Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The addition of the technique of electrospray extends the range of MS to protein and nucleic acid molecular weights far beyond any other technique. The use of electrospray ionization in combination with high resolution provides the latest technique available in mass spectrometry. It affords the chemist one of the most powerful tools available for the characterization of compounds. The acquisition of this capability in mass spectrometry is essential for the prosecution of frontier research in many fields of chemistry. ***